BIGDATA: Collaborative Research: F: Efficient Distributed Computation of Large-Scale Graph Problems in Epidemiology and Contagion Dynamics

A number of phenomena of societal importance, such as the spread of diseases and
contagion processes, can be modeled by stochastic processes on networks. The analysis
and control of such network phenomena involve, at their heart, fundamental graph-theoretic problems.
The graphs encountered are typically of large-scale (having tens of millions of nodes);
further, typical experimental analyses involve large designs with a number of parameters,
leading to hundreds of thousands of graph computations. Novel methods for solving these problems
are needed, since fast response times are critical to effective decision making.
The overarching goal of this project is to develop efficient distributed algorithms
and associated lower bounds for graph-theoretic problems that arise in computational
epidemiology and contagion dynamics. This will have a significant impact on these specific
applications, through more efficient algorithmic tools for enabling complex analyses.
The project will also make fundamental contributions to the design and analysis of
distributed algorithms for graph problems in large-scale networks, and will
result in an algorithmic toolkit with building blocks for performing large-scale
distributed graph computation. The project will lead to significant curriculum development
for undergraduate as well as graduate students, as well as public health analysts.
Finally, the project will help in involving minority and underrepresented students in research.

The technical focus of the project will be on distributed algorithms for fundamental topics
in graph algorithms such as graph connectivity, distances, subgraph analysis, and different
kinds of centrality measures. These topics underlie some of the recurring problems in the
modeling, simulation and analysis and control of different kinds of contagion processes.
For all these problems, the project will focus on developing provably efficient distributed
algorithms and showing lower bounds under a message-passing distributed computing model.
The PIs will also develop efficient implementations of these algorithms, and evaluate their
performance and solution quality in real-world graphs arising in epidemiology. The graphs
that arise in these applications have several novel characteristics, which will present new
challenges as well as opportunities for distributed computing.